Research Publications from a Digital Ionosonde

Measurements of the auroral ionosphere using a digital research-ionosonde co-located with EISCAT near Tromso Norway provide the content and orientation of the proposed work. Data acquisition and analysis were accomplished (1983-1989) by the investigator during a stipendium with the Max-Planck Institut fur Aeronomie, followed by a research consultancy at the British Antarctic Survey. The seven papers now to be written will join four already published, or accepted, which have resulted from prior work. Two papers present a new method for deriving ionospheric vector velocities from high resolution Doppler and echolocation analyses and undertaking their comparison with EISCAT bulk ion- velocity measurements. Three papers are concerned with new achievements in the development of data acquisition principles for digital ionosondes. They show progress toward a better understanding of the interplay of the processes of radio reflection, refraction, diffraction and dispersion in controlling the information content of ionosonde echoes. One paper demonstrates two new methods for the spatial representation of ionospheric soundings. Two papers are concerned with natural (Joule) and artificial (radio) heating of the auroral ionosphere.